Laser Spectroscopy of High-Temperature Molecules

The research group of Professor Bernath is supported by the Physical Chemistry Program in an ongoing spectroscopic characterization of novel high-temperature molecules. Information is being obtained on the electronic, vibrational, and rotational properties of metal-containing free radicals. This research program is exploring new and unusual chemistry involving metal vapor reactions with organic oxidants. Work exploring the reactions of alkaline earth atoms (Ca, Sr, Ba) and various organic molecules is being extended to other metals (Mg, Al, Zn, Ag, and Cu). Laser-driven vapor phase chemistry and laser-induced fluorescence detection is being used to study many new and unusual molecules, including single-metal single-ligand free radicals.